U.S.-Mexico Collaborative Research: Biochemical Basis and Function of Stress-Induced Betaine Accumulation in Maize

This award will support Professors Andrew Hanson of Michigan State University (MSU) and David Rhodes of Purdue University in a research collaboration with Professor Claudia Lerma Ortiz of the Instituto Politecnico Nacional (IPN) in Mexico City, Mexico and researchers at the Mexican International Maize and Wheat Improvement Center (CIMMYT). The investigators intend to test the hypothesis that betaine synthesis in grasses is necessary for adjustment of plant tissues to water stress, either as a result of drought or salinity. Betaine is synthesized and accumulated in grasses and chenopods (spinach and beets as well as many weeds) under salt or drought stress conditions. In chenopods, the enzymes of betaine synthesis have been identified and betaine seems to be central to osmoregulation and stress adaptation. Among grasses, high betaine-accumulating capacity has been shown to be broadly correlated with adaptation to saline or dry conditions, but neither the biosynthetic path nor the physiological function of betaine is known. The investigators intend to use maize in parallel studies of a) betaine biosynthesis and b) the relation of betaine accumulation to overall osmoregulation in a grass. The choice of maize is dictated by two factors: 1) genetic variation for both betaine level and ability to osmoregulate is available in maize; 2) maize has relatively low salt- and drought tolerance which could be associated with the low betaine levels found in this crop. Work on betaine biosynthetic enzymes will be carried out at MSU and at the IPN, with synthesis of labeled compounds and fast atom bombardment mass spectrometry (FABMS) analysis at Purdue University. Work relating betaine accumulation to osmoregulation will be conducted at INP in collaboration with researchers at CIMMYT. The proposed work will increase our understanding of plant acclimation to low-water situations, while at the same time it is likely to provide a sensible pathway to further advances in the genetic engineering of high salt- and drought tolerant plants.